Displacement Chromatography of Proteins: Identification of Critical Displacer Properties and Development of Novel Nontoxic Displacers

The project studies displacement chromatography and polymer synthesis to investigate the effect of critical displacer properties using well defined polymeric displacer compounds. A variety of novel polymeric displacers will be synthesized for ion exchange, hydrophobic interaction, and metal affinity chromatographic systems. The developed displacers will be purified and subjected to appropriate analytical chemical techniques to establish their structure and purity. Chromatographic behavior of these compounds will be evaluated using elution chromatography and adsorption isotherms will be determined by frontal chromatography. Model protein feed mixtures exhibiting a spectrum of properties will be established for these adsorbent systems. The ability of polymeric displacers of various molecular weights, functional group densities, and conformations to act as protein displacers in these systems will be examined, and the relative importance of these properties will be established. The resulting data on displacer properties will be used to identify combinations of displacer physicochemical properties which are required for efficient displacement of biopolymers and rapid removal of the displacers for regeneration of the stationary phase materials. This fundamental research will provide basic insight into the displacement phenomenon at the molecular level and will establish guidelines for the design and synthesis of appropriate displacers for future bioseparation problems.